Conference on Infinite-Dimensional Aspects of Representation Theory and Applications; Charlottesville, VA; May 2004

The funds are being requested to organize a meeting on infinite-dimensional aspects of representation theory and applications. The conference will be held at University of Virginia in May 2004.
The meeting will feature three mini courses meant to help graduate students to enter new and exciting areas of mathematics, as well as plenery talks by many leaders of the field. More than half of the requested funds will cover the student and junior faculty participation.